Physiological Psychology Expansion Project

The objective of the project is to develop the physiological psychology program at Kalamazoo College to a level that allows students to: (1) have access to a laboratory course in physiological psychology, (2) participate in group research projects, and (3) conduct supervised, but independent research projects. At present, insufficient equipment for animal care and the lack of some basic laboratory equipment have precluded the expansion of the physiological psychology program. The acquisition of cage washing equipment and animal housing will allow the expansion of the animal care facility, thereby increasing the research capacity. The acquisition of equipment necessary for brain surgery (drills, stereotaxics, cryostat, microscope) will greatly expand the surgical techniques that can be used in research and, when combined with the equipment already possessed by the College, will provide students with enormous flexibility in the type of research they can conduct. Increased research capacity and complexity will significantly improve the departments ability to train students in the techniques and theories of physiological psychology and related fields.